Artisan Park: 15,000 sq. ft. Outdoor Science Park On Mechanical Physics, History And Aesthetics

9726700 Dolan With this planning grant, the staff of the Bucks County Historical Society will work with a group of museum professionals and community representatives to develop plans for interactive exhibits that have science and math content that will be placed in an outdoor park. They want visitors to learn about the science, history, and aesthetics of early American hand tools and technology by experiencing various hands-on activities. The planning activities will include meetings of the planning committees, front-end evaluation, and the testing of some prototype activities. At the end of the twelve month planing period they will have 1) a better understanding of their audience and their knowledge of the science and technology to be presented in the exhibit, 2) a schematic design for the activities to be included in the park, 3) plans for complementary educational activities, and 4) results of prototype testing of selected activities